Materials Chemistry Across the Curriculum An Integrated Sequence of Laboratory Modules

Steven K. Pollack DUE 9551926 Howard University FY1995 $ 59,609 Washington, DC 200590001 ILI - Instrumentation Project: Chemistry Title: Materials Chemistry Across the Curriculum An Integrated Sequence of Laboratory Modules The aim of this project is to develop integrated experimental sequences that will hold the interest of students across a number of laboratory courses. We are developing a series of laboratory experiments, using materials chemistry as a central theme. The students are synthesizing and characterizing organic and inorganic materials, the syntheses being carried out in the general chemistry and organic chemistry laboratories and the characterization of these materials are being performed in the upper division analytical, physical, inorganic and polymer laboratories. The ceramic material alumina is synthesized by sol-gel methods and characterized by X-ray diffraction and thermogravimetric analysis. A conjugated polymer, capable of electro-luminescence is being prepared by condensation polymerization in aqueous media and characterized by viscometry, thermogravimetric analysis, differential scanning calorimetry and luminescence spectroscopy.